CRII: SHF: Analyzing the Linux's KBuild Makefile

The Linux system empowers a wide range of computer devices, ranging
from tiny IoT sensors and mobile phones to desktop and supercomputers.
This flexibility is due to the highly-configurable design of Linux,
allowing the users to customize and build Linux with an extensive set
of options. This reconfigurability has many benefits, but it also
greatly complicates tasks such as testing and debugging due to the
large number of possible configurations. This project aims to develop
algorithms and tools to analyze the complex Linux build process to
understand how configuration options affect the building of individual
source files. This research will allow developers to find
orphan files that are never used in the build process, examine and
test configurations that affect individual source files, and determine
how patches or code changes affect a given configuration. The research
also helps users, e.g., allowing embedded system manufacturers to
optimize Linux to fit their devices. In addition, the research allows
for the discovery of many interesting and useful information about the
Linux build system, e.g., the complexity of build
conditions, highly-influential configuration options, etc.

This project aims to develop static and dynamic analyses to analyze
the Linux build system, in particular the "makefiles" that control the
building and linking of individual source files. The research is
divided into three main activities. The first develops a symbolic
execution technique that simulates the runs of the makefiles to obtain
path conditions over configuration options mapping to built files.
These path conditions provide a formal description of how
configuration options affect the building of individual kernel files.
The second develops a dynamic analysis that learns path conditions
from kernel files built from actual make runs over a sample of
configurations. This analysis will be based on a recent work developed
by the team that alternates between a learning and checking phase to
improve the overall quality of the learned conditions. Finally, by
representing the obtained path conditions as logical formulae, modern
constraint solvers can be applied to solve problems such as finding
orphan files and the impact of configuration options to files included
in a build.